Studies in Commutative Algebra and Algebraic Geometry

HOCHSTER, 9970702

It is proposed to study several problems related to tight closure,
including the long open question as to whether it commutes with
localization, the relationship of tight closure with Hilbert-Kunz
functions, the problem of characterizing tight closure in equal
characteristic zero in new ways that will produce better insight
into the phenomenon, and the central problem of extending the
underlying idea to rings that do not necessarily contain a field, which
would solve many open questions, including the long standing conjecture
that regular rings are direct summands of their module-finite
extension rings.

Commutative algebra and algebraic geometry may be thought of
as studying solutions of many equations in many unknowns
when, typically, the solution is not unique. The set of
solutions can then be viewed geometrically, but one
can use instead encode all the pertinent information about
the equations in abstract algebraic objects called commutative
rings. The two points of view interact in beautiful and
productive ways. A breakthrough method in commutative algebra that
has had explosive development in this decade is the theory of tight
closure. Part of the underlying idea is to consider the system
of equations, after suitable modification, or the ring, modulo
many different prime integers. This is a powerful technique
that has solved many problems, while opening up vast new
areas for research.